NGS: The Fourth Annual International Workshop on Active Middleware Services (AMS 2002) and the Third Annual International Workshop on Grid Computing (GRID 2002)

EIA-222359
Salim Hariri
University of Arizona

NGS: The Fourth Annual Workshop on Active Middleware Services (AMS 2002) and The Third Annual International Workshop on Grid Computing (Grid 2002)

The increasing complexity of the emerging ubiquitous grid network infrastructure in conjunction with active technologies requires additional support for application developers and users. Middleware will play a crucial role in the degree to which active technologies achieve their full potential. Such middleware will in all probability be deployed in grid environments. For these reasons, two workshops are proposed: one in active middleware and another in grid computing. While these two workshops will be held separately, each will bring together leading researchers in their respective fields. Research in related areas will be invited to add their expertise to the discussions. While the main focus of each workshop in different, there is nonetheless a synergy between them. Both could explore the advanced area of active grid middleware.